Development of a Non-Destructive Method for Jade Sourcing

Drs. Curtiss and Lange will collaborate to develop visible and near infrared (VNIR) reflectance spectroscopy as a non- destructive technique for the determination of the mineralogical composition of jade and related stone artifacts. The technique will be refined by the detailed study of the reflectance spectra of a well characterized set of archaeological and geological samples. The mineral and chemical compositions of these samples will be defined using the techniques of X-ray diffraction, X-ray fluorescence, electron microprobe analysis, scanning electron microscopy, and petrographic thin section analysis. Working with samples of known provenience, the investigators will determine the extent to which sample homogeneity exists within a single source area and the extent to which different source areas vary from each other. If successful, the technique can provide a non- destructive way to match jade archaeological objects to source areas. Through much of Middle America and the American Southwest, jade functioned as a prestige item and is often recovered in archaeological contexts. It is likely that this valued item was traded over long distances, and therefore, if an accurate non- destructive sourcing method were developed, archaeologists could reconstruct trade routes. A number of important questions could then be answered. It has been argued, for example, that the complex societies which emerged in the Southwest U.S.A. are the result of contact with even more highly developed Mexican groups. One argument used to support this contention is the presence of jade objects. However, the sources of this jade is unknown and until it is proven (or disproved) that the source lies to the South, the issue is still in doubt. Secondly, many archaeologists believe that the emergence of large scale societies is directly related to the development and control of trade networks. Thus, techniques which can match objects in archeological sites to raw material sources can help to answer this question. This research is important because it may provide a valuable new tool for archaeologists. Since it is non-destructive, it can be applied to museum specimens and significantly increase the knowledge which may be gained from them.